U.S.-South Africa Planning Visit: Use of a Gravitational Microlensing Technique to Search for Extra-Solar Planetary Systems

This award supports a planning visit by Drs. Bennett and Rhie, from Livermore, California, to travel to South Africa for the purpose of examining the telescope at the Boyden Observatory (owned by the University of the Orange Free State) to assess its suitability for inclusion in a project to search for extra-solar planets using a global microlensing follow-up network of optical telescopes located in the Southern Hemisphere. Future collaborative research opportunities will also be discussed. The principal investigators will meet with Dr. Peter Martinez, Department of Astronomy and Institute of Theoretical Physics and Astrophysics at the University of Cape Town, Dr. Robert Stobie, the Director of the South African Astronomical Observatory, and with members of the University of the Orange Free State.